Minority Access/Graduate Networking in the Sciences, Technology, Engineering, and Mathematics (MAGNET-STEM II

The CUNY AGEP Program, MAGNET-STEM, was launched in 1999 to produce a significant
number of underrepresented minority doctoral students in science and engineering fields and to
prepare them for academic careers. The major goal of this project, MAGNET-STEM II, is to
build on previous gains and institutionalize effective practices by strengthening the alliance's
undergraduate-to-graduate- to- post graduate infrastructure. This goal is in accord with the NSF
priority to "catalyze changes in institutional, departmental and organizational culture and
practices that will result in significant increases in the recruitment, retention, degree conferral and
STEM career (especially academic) entry of minority students." Activities will include:
(1) undergraduate /graduate summer research and internships; (2) mentoring and mentoring
training; (3) conference presentations; (4) colloquia and seminars on teaching, science and
mathematics education, and on communication technologies. MAGNET-STEM II will comprise
an inclusive scholarly community of STEM faculty and students from diverse ethnic, racial, and
geographic backgrounds, as well as persons with disabilities. Students will be guided by experts
in their scientific field to engage in research activities that enable them to master the knowledge
and investigative approaches in their chosen areas of specialization. The project will promote the
social as well as academic integration of all AGEP students within departments and the
improvement of advisement, in addition to offering financial support. Informal and formal
interaction between faculty and students to socialize AGEP scholars to the academic profession
increases the likelihood that they will graduate and move into postdoctoral and faculty positions.
The intellectual merit of MAGNET-STEM II derives from the acquisition by AGEP
scholars of a broad background of knowledge that enables them to relate issues in science,
mathematics, and technology education to one another and to specialize in one of these areas. To
increase the knowledge base and to develop further their research interests, AGEP scholars will
have access to affiliated institutions such as Bell Laboratories, Brookhaven National Laboratory,
Institute for Basic Research in Developmental Disabilities, the Albert Einstein College of
Medicine, and the Center for the Analysis and Research of Spatial Information (CARSI), a large
state-of-the-art GIS and Remote Sensing Laboratory considered to be one of the finest on the East
Coast. The City University of New York Graduate Center offers to AGEP scholars training in
mentoring, and enrollment in the Colloquium on College Teaching and in the Science,
Mathematics, and Technology (SMT) in Education Seminars, which focus on college teaching
and STEM education from K-12. SMT seminars address contemporary research issues in the
fields of mathematics, science and technology in education. This includes the education of
students about technology in society and its relations to science and mathematics. The CUNY
Graduate Center, as lead institution, conducted the prior AGEP research project, MAGNET-
STEM I (1999-2004), which resulted in increases in the number of minority applicants,
enrollments and degree conferrals.
The broader impacts of MAGNET-STEM II will occur through the production of an
increased number of doctoral students from underrepresented populations trained in their
academic specialties working in our nation's laboratories and classrooms and who have developed
mentoring experience. Moreover, as a result of participation in the Science, Mathematics, and
Technology in Education Seminars offered by the CUNY Graduate Center's Ph.D. Program in
Urban Education, AGEP graduates will have knowledge of effective forms of curriculum
articulation and partnerships in STEM education that extend to university, school, community,
and corporate partnerships, and that move along the urban-education K-16 continuum. In this
connection, AGEP scholars will work to prepare teachers of STEM education, leading to an
improvement of student achievement in STEM education within culturally diverse urban
populations and, hence, to systemic reform.